A Study of Solidification and Melting Adjacent to Complex Boundaries

This study concerns fundamental research in melting and solidification. Researchers will engage in a combined theoretical and experimental study of the phase change phenomena occurring in materials surrounding finned surfaces. The results of this study can have an impact on thermal systems used in energy storage, nuclear reactor safety, food processing, and cryosurgery.